Mathematical Sciences: Parabolic Invariant Theory and Geometric Analysis

The research entails analytic problems on classes of conformally compact manifolds and manifolds inheriting partial complex structures (Cauchy-Riemann manifolds). The techniques in question evolve from variational principles and the geometry of Einstein metrics. This research has potential applications to mathematical physics, particularly general relativity and quantum gravity.